Continuous Games in the Laboratory--Programming Support

This award funds the involvement of undergraduates in the research already funded by NSF through award 0925039. The undergraduates will be working to develop parts of an innovative software platform that will be used to conduct experimental research in strategic decision making.